High-Performance Computing for Computer Science Research

A new Department of Computer Science has been formed at Princeton University; unusually outstanding new faculty members have been and are continuing to be recruited at all levels to join a nucleus of individuals from the former Department of Electrical Engineering and Computer Science. With the support provided by the University, this Institutional Infrastructure award will aid in the establishment and operation of a research computing environment that can serve as the basis for experimental computer science research activities at Princeton into the next decade. Research at Princeton includes work in Programming Languages, Graphical Representations of Mathematical Objects, VLSI Layout Algorithms and Tools, Design and Analysis of Data Structures, and Algorithm Animation. The facility to be provided, which includes high-performance workstations and advanced personal computers will, with the primary VAX equipment provided by the University, serve the needs of all of these diverse projects, allow the current group to move forward in experimental research and provide for additional planned growth of both faculty and students.